Alliance for Broadening Participation in STEM NMSU Bridge to the Doctorate VII

New Mexico State University Louis Stokes Alliance for Minority Participation (NM-LSAMP) Bridge to the Doctorate (BD) Program is a collaborative effort between the National Science Foundation and New Mexico higher education institutions to increase the quality and quantity of underrepresented minorities matriculating to completion of the doctoral degree in science, technology, engineering, and mathematics fields (STEM) fields. The 2009-2011 program, at New Mexico State University, prepares students to meet the challenges of completing master's and doctoral programs of study preferably for academic careers in higher education. In addition, the program develops leadership skills necessary for success in the STEM workforce nationally and internationally.

Integrating research and education, the BD fellows will be nurtured over two years as a cohort community that will benefit from a program of academic and personal development activities as well as social support to sustain their commitment and success to the terminal STEM degree. Program activities include linkages to the New Mexico State University Integrated Graduate Education in Research and Training (IGERT) as well as other NSF-funded research and education projects, including programs that provide mentoring opportunities for undergraduate students.

A total of 12 students from underrepresented minority populations in STEM fields will participate in the program at the New Mexico State University during the 2009-2011 academic years. Results from this support will broaden the participation of Hispanics and Native Americans in the STEM pipeline, U. S. workforce and abroad. Results from rigorous evaluation of the project will add to the body of literature in successful recruitment and retention of underrepresented minority students in STEM fields.